U.S.-France (INRIA) Cooperative Research: Domain Decomposition and Multilevel Techniques in Large-Scale Parallel Computing

9310529 McCormick This three-year award supports U.S.-France cooperative research in applied mathematics and advanced scientific computing among U.S. and French research teams at the University of Colorado (Denver and Boulder), Texas A&M, and INRIA Rocquencourt (French National Institute for Research in Computer Science and Applied Mathematics) and ONERA. The objective of the research is to investigate domain decomposition and multilevel techniques for parallel numerical simulation of fluid flow and structural dynamics. The idea behind this approach is to develop new methods in a parallel computing environment to allow modeling of more sophisticated engineering problems. They will focus the research on four applications: (1) flow transition to turbulence; (2) zoning-coupled flow modeling; (3) transport phenomena; and (4) fluid-structure interaction. The proposed areas arise in many civil and aerospace engineering applications. The U.S. investigators bring to this collaboration expertise in parallel computing, multilevel and domain decomposition techniques. This is complemented by the French team's experience in domain decomposition, fluid flow and parallel computing. Their joint efforts could lead to improved algorithms for large scale parallel computing. ***